Multiscale Models and Petaflops Simulations on the Human Brain Vascular Network

This proposal will demonstrate a software infrastructure specialized to study of cerbrovasculature. The problem is of great societal importance and is typical of a number of multiscale multiphysics problems encountered in multiple branches of science. The investigators will focus in this project on:
• Scalable Continuum Models using their highly accurate hp adaptive spectral element code NEKTAR,
• Stochastic Continuum/Atomistic Modeling (LAMMPS-DPD);
• Multi-Level Parallelism, and, finally an effort to make computing across multiple grids by doing a pilot of TeraGrid-DEISA Grid Computing.